RUI: Aging and Intergenerational Relations Among Mayas in Los Angeles

9318983 This project involves the research of a cultural anthropologist at a predominantly undergraduate institution, Cal State Long Beach. The researcher will study of immigrant Maya Indians from Mexico have changed their conceptions and expectations of aged people as a result of their experiences in the U.S. Using technical quantitative sorting analyses of terms denoting aging, the anthropologist will describe the cognitive models of aging of a sample of Mayans. This analysis will then be combined with more traditional interviewing and observational data to provide a description and analysis of the condition of aging among this immigrant community. This research is important because as both the aged and immigrants become a larger proportion of U.S. society, the need becomes greater to increase understanding of their condition. These understandings will be valuable to planners in any community where immigrants form a distinct population. ***